Picowatt Calorimetry for Single Biological Cell Studies

1033542
Sangi Reddy

The objective of this research is to develop a micro-device that is capable of picowatt-resolution, room temperature calorimetric measurements. Such technology could enable new understanding of systems-level biological properties of single biological cells. The work involves micro- and nanofabrication, micro-scale heat transfer, and ultra-sensitive instrumentation components.

Intellectual Merit: Although the long-term objective is to apply picowatt calorimetry to measure energy transduction in biological cells, this research will focus on the design, fabrication and demonstration of a micro-device capable of measuring steady (DC) power outputs with picowatt resolution. This level of resolution represents an improvement of approximately three orders of magnitude compared to the most precise room temperature calorimetric devices available today. To achieve such precise power resolution a device consisting of a micro-island suspended by thin and long beams will be used as this approach enables thermal isolation of the test section. Additional features include the incorporation of a high-sensitivity bimaterial cantilever for optically sensing temperature changes in the suspended region of the device and a microfluidic channel that enables the modulation of the thermal conductance of the micro-device.

Broader Impact and Significance: This research will lay a foundation for studying the mechanisms that maintain and control biological cells. More broadly, picowatt calorimetry will provide new insight into biology, materials science and electrochemistry. The project involves education and training of K-12 and undergraduate students, including students from underrepresented groups, by providing a variety of educational and research experiences.